A 600 MHz Nuclear Magnetic Resonance Spectrometer

Funds are requested to purchase a state-of-the-art 600 MHz nuclear magnetic resonance spectrometer with triple- resonance and pulse-field gradient accessories to be used by three major groups in the Department of Chemistry and the Department of Molecular and Cellular Biology, and by several minor users in the Department of Chemistry This instrument is needed to provide high-resolution and high-sensitivity homo-nuclear multi-dimensional NMR capabilities for carrying out many new NIH-funded research projects and several new directions derived from existing NIH-funded projects. Theses include structural and functional studies of signaling proteins, transcriptional regulation and DNA repair by proteins, and structural immunology and virology, all of which rely on successful determination of three-dimensional structures of biological macromolecules in solution.